Postdoctoral Research Fellowship in Plant Biology

The moss, Funaria hygrometrica, is an excellent model system in which to study the control of cell division during plant development. Biochemical and ultrastructure studies during bud initiation have implicated the membrane associated calcium as a second messenger and the involvement of the cytoskeleton in the ordered events leading to bud formation. Dr. Mary McCauley will continue these studies in Dr. Peter Hepler's laboratory with the following approaches. 1. Examination of cytoskeletal organization under both normal developmental conditions and experimentally-manipulated conditions of Ca-stimulation or inhibition using immunofluorescent and fluorescent labelling of tubulin and actin in situ and, when warranted, a freeze fixation, freeze substitution method of electron microscopic preparation; 2. analysis of membrane distribution and relationships during both normal and calcium-modulated development, with particular emphasis on the plasma membrane and the endoplasmic reticulum and any interconnections between the two; 3. ultrastructrual localization of calcium during cytokinin-induced bud initiation using an oxalate- precipitation, freeze-substitution procedure, followed by electron microprobe x-ray analysis; Cell division during reproduction of a plant must be a series of events which lead to the progeny cell. This work will help to illuminate those events and the order in which they occur.